A Better Book Browser: How to Read a Million Books

A new interface to traditional monographs, introducing structure, summaries,
and personalized indexes, is being built. This enables students to search
and use digital libraries more effectively. The interface should be useful
in the context of the Million Book Project which will provide one million
out of copyright books in digital form, the equivalent of a major research
library. Key ingredients in this interface are selection of relevant
phrases, automatic summarization, and the ability to search and summarize
in the context of a particular information need.

The impact of this work includes access to the enormous contents of our
older libraries, improving our ability to use monographic material in
online teaching, and greater understanding of how students learn by
reading. In addition, we will employ the technology for teaching in our
university, helping educate our students in communication and library
studies.